U.S.-Finland Workshop on Advances in Scientific Computing with Emphasis on Linear Problems; Helsinki, Finland; August,1989

This award provides partial support for approximately twelve U.S. computer scientists to participate in a joint workshop in Finland on the state of the art in large scale scientific computing. The meeting was organized by Professor Gene Golub of Stanford University and Professor Olavi Nevanlinna of the Mathematics Department of Helsinki University of Technology. It will be held in conjunction with the annual meeting of the Nordic Section of SIAM (Society for Industrial and Applied Mathematics.) Finland has a strong tradition in numerical analysis, particularly in such topics as mixed finite elements, numerics on free boundary problems, and numerics on integral equations. However, mathematicians there have relatively little experience in large scale computing. The Finnish State Computer Center has just acquired its first supercomputer, which has greatly expanded the potential for scientific computing in Finland. The workshop will focus on large scale computing in general and numerical linear algebra in particular, and is expected to stimulate U.S.-Finnish cooperation in these areas. The U.S. participants should benefit greatly from the experience of the Finnish group in applying finite element techiques in a wide variety of situations, including some novel applications. With the advent of new computer architectures and more powerful computers, it is necessary to consider anew the link between numerical analysis and computer architectures. Many algorithms which have been discarded in the past are now returning to the forefront. These algorithms can greatly affect a computation and can play a role in the formulation of the design of the solution method. This workshop will focus further attention on the relation between the problem formulation and the methods which are used for solving these problems.